SBIR Phase II: A single-cell-interaction platform for accelerating discovery of bispecific antibodies

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is to accelerate development of immunotherapeutics and make them broadly available and affordable to patients in need. Immunotherapeutics, which work by engaging the immune system to tackle diseases, have demonstrated tremendous potential to cure, or improve quality-of-life of patients with cancer, autoimmunity, or other disorders. Unfortunately, only a handful of these treatments are currently available. Furthermore, immunotherapeutics are costly and unaffordable for the healthcare system and patients including the disadvantaged populations. These challenges can be attributed to the costly and inefficient therapeutic discovery processes with conventional drug screening platforms. This project aims to develop a high-throughput, single-cell based functional screening technology that can enable rapid discovery of many immunotherapeutics, specifically bispecific antibodies (“BsAbs”), to treat a broad range of debilitating diseases, and therefore can make significant and broad societal impact. Meanwhile, the BsAb market is in its early exponential growth phase and will reach $10 billion global sales in the next few years. The proposed technology will be quickly deployed to enable pharmaceutical and biotechnology clients to identify their therapeutic leads with unprecedentedly rapid turnaround and high success rate (commercial value).

The proposed project aims to further develop, optimize and launch the first dedicated commercial platform for functional discovery of bispecific antibodies (“BsAbs”). The conventional trial-and-error approach, in which BsAbs are empirically designed and then must be evaluated individually for their functionality, is tedious, time-consuming, and expensive. The proposed technology represents a new paradigm in BsAb discovery by employing an ultra-high throughput, single cell-based functional screening, enabling efficient discovery of rare functional BsAbs with differentiable properties. The objectives of this project are to develop, optimize and quality control (QC) the entire platform workflow including upstream BsAb library and reporter cell preparations, midstream droplet assay and sorting, and downstream target validation and characterization. By the conclusion of this study, a robust and streamlined system will be ready for commercial launch, enabling pharmaceutical company partners to discover new BsAb immunotherapeutics. This project will result in new tools and methods in single-cell therapeutic discovery and make significant intellectual contributions including complex cell library construction, multiplexed reporters, and potentially new therapeutic candidates. Furthermore, the unique ability to interrogate many variables in a combinatory and high throughput fashion can lead to new insights of the modes of action and inform future design of immunotherapeutics.